Self Assembly of One, Two and Three Dimensional Supramolecular Structures

With funding from the Organic Dynamics Program, Professor Gibson of Virginia Polytechnic Institute and State University will develop the methodology of self assembling rotaxane systems into supramolecular structures. This methodology depends on the host-guest relationship between bipyridine salts and 32-crown-10 ethers. Once assembled, the structure will be stabilized with covalent bond formation. A myriad of structural motifs is planned and incudes linear, branched and ultimately dentritic type architecture. These types of systems hold promise for new ventures in the areas of photo and electro devices, catalysis and mass transport media. A new class of supramolecular structures is planned from the self assembly of rotaxanes and crown ethers. Once assembled and fixed via covalent bond formation, these types of structures can be explored for their photo and electro device properties. Further, they are anticipated to have catayltic properties and may be used as a mass transport media. + Ûª▓ ÑOh ª' +'ª▒0 Ý + ] $ H l + ¢ ╗ S u m m a r y I n f o r m a t i o n ( ++++++++++++ Û ++++++++++++ ++++++++++++ ++++++++++++ D h + F÷t ─- +F +V 9V=rRv ─+ 9FevH─ª + R:\WWUSER\TEMPLATE\NORMAL.DOT